Molecular Investigations of GnRH in Lamprey Reproduction

Regulation of reproduction is controlled by hormones, and an important one for all vertebrates is gonadotropin-releasing hormone, GnRH. Studies in recent years on the jawless vertebrate called the lamprey, representing the most primitive lineage of vertebrates, show that its GnRH has more than one molecular form. This project utilizes molecular techniques and immunocytochemical staining to isolate and characterize the genomic sequences that encode two of these forms, and the molecular receptor molecules on cells in the brain that respond to GnRH. Results will tell whether lamprey GnRHs share common functional and developmental features with the GnRH found in other vertebrates, and how these multiple forms of GnRH are used by lampreys to regulate reproduction. The comparative approach allows inferences about how the control of reproduction arose in the evolution of vertebrates.
This project will increase our understanding of reproductive control and how it evolved, and so will have an impact beyond neuroscience on endocrinology and vertebrate biology in general. This project also has potential for developing controls for a predatory animal that affects commercial fisheries, has strongly integrated educational and training opportunities for graduate and undergraduate students, and has a strong component of international collaboration.